Electrodeposition of Composition Modulated NiFe Alloys: Relationship between Structure and Processing in a TransientFlow

This proposal is concerned with thin film materials with a one-dimensional, spatially periodic composition variation. These are referred to as composition modulated alloys (CMAs), and they can exhibit extraordinary mechanical, magnetic and optical properties especially when the periodicity wavelength is of the order of nanometers. The proposal suggests using electrochemical deposition, rather than the conventional vacuum deposition, to fabricate the CMAs, and the study will focus on the deposition of NiFe films. NiFe alloys with uniform composition are used, because of their high saturation magnetization and high initial permeability, for read/write heads for computer disk drives and as underlayers for perpendicular recording media. CMAs of NiFe have the potential for high performances in magnetic data storage because of the extra degree of freedom. The films will be deposited using a uniform injection (rather than rotating disk) flow cell. Flow pulsations are used to periodically vary the composition of the film as it is deposited on the electrode surface.